TO TRANSFER $10,000 TO DEPARTMENT OF LABOR TO DELIVER NO FEWER THAN FIVE SENIOR EXECUTIVE SERVICE FORUMS OF TWO TO THREE HOURS EACH DURING THE PERIOD OF 10/01/2000 THRU 06/30/01

To provide Department of Labor funds to deliver a series of no fewer than five Senior Executive Service Forums for period of 10/01/2000 to 06/30/2001.